Selmer Groups

The investigator intends to pursue a diverse set of projects related to
Selmer groups, elliptic curves, modular forms, p-adic L-functions and
Iwasawa theory. Selmer groups have traditionally been an important tool
for studying the Mordell-Weil group of an elliptic curve over a number
field. They have also played an important role in proving special cases
of the Birch and Swinnerton-Dyer conjecture which provides a relationship
between arithmetic properties of an elliptic curve E and the behavior of
the Hasse-Weil L-function for E. In recent years it has become clear that
certain natural generalizations of the Selmer group should provide similar
conjectural relationships to the behavior of much more general kinds of
L-functions. Iwasawa theory provides a framework for studying these
conjectures by allowing the L-functions to vary in families defined by
congruences modulo powers of a prime p. This leads to the notion of a
p-adic L-function and to the formulation of analogous conjectural
relationships relating the behavior of such p-adic L-functions to the
corresponding Selmer groups. The investigator, together with several
collaborators, intends to study this kind of conjectural relationship in
some new settings: (1) p-adic analogues of classical Artin L-functions,
(2) families of L-functions associated to certain families of Galois
representations of varying dimension. In addition, the investigator
intends to study relationships between Selmer groups associated to modular
forms and ideal class groups of certain number fields and to study some
unresolved questions about the derivatives of p-adic L-functions.

One of the fundamental questions in the theory of numbers is the study
of solutions of an algebraic equation. The difficulty of this question
depends on the degree of the equation and the number of variables. It
has been understood since antiquity how to study this question when the
degree is one or two and the number of variables is also one or two.
However, the question becomes much more subtle when one considers
equations of degree three, even if the number of variables is just two.
A fundamental conjecture concerning this kind of equation was formulated
in the 1960s by Birch and Swinnerton-Dyer. Although considerable progress
has been made since then, the conjecture remains unresolved. Such equations
define a class of curves known as "elliptic curves." The study of their
properties has proved to be of importance in crytography - designing codes
for the secure transmission of information. Professor Greenberg intends to
continue his study of "Selmer groups" which have been a traditional tool in
understanding the arithmetic properties of elliptic curves and in studying
the conjecture of Birch and Swinnnerton-Dyer. The ultimate goal is to
achieve a deeper understanding of the solutions to the algebraic equations
that define an elliptic curve, and to develop a more general point of view
concerning conjectures analogous to the Birch and Swinnerton-Dyer conjecture.